U.S.-China Joint Workshop: Catalysis for Sustainable Chemical Technologies; Beijing, China, September 23 -27, 2001

0099819
Davis

This is a workshop proposal submitted by Dr. Robert Davis, University of Virginia, to request travel expenses to enable 12 U.S. scientists to attend an international meeting on new perspectives on catalysis for sustainable chemical technologies. This meeting is scheduled to be held in Beijing, China on September 23-27, 2001. The purpose of this workshop is to bring together young scientists and engineers for an exchange of views on future trends in catalyst synthesis and catalytic reaction processes related to the environment and energy production. The NSF and the National Science Foundation of China jointly support this workshop.